Numerical and Theoretical Analysis of Shallow Water Flow with Applications to the Global Oceanic Circulation

9730596 Iskandarani The project is for numerical and theoretical study of the role of gravity waves in the long-time evolution of the global oceanic circulation. The model used is SEOM developed at Rutgers University, and an multiple-pressure- variable approach will be implemented. It would lead to an order-of-magnitude enhancement in the efficiency of SEOM, thus allowing extended high-resolution ocean simulations that include adequate representation of free-surface phenomena. The model will first be used for two-dimensional simulations of tidal circulation in the global ocean. After the model is optimized, extended three-dimensional simulations of the global wind-driven circulation will be performed.